NeTS: Medium: Collaborative: Reliable Underwater Acoustic Video Transmission Towards Human-Robot Dynamic Interaction

In the past decade underwater communications have enabled a wide range of applications; there are, however, novel underwater monitoring applications and systems based on human-robot dynamic interaction that require real-time multimedia acquisition and classification. Remotely Operated Vehicles (ROVs) are key instruments to support such interactive applications as they can capture multimedia data from places where humans cannot easily/safely go; however, underwater vehicles are often tethered to the supporting ship by a fiber cable or have to rise periodically to the surface to communicate with a remote station via Radio Frequency (RF) waves, which constrains the mission. Wireless acoustic communication is the typical physical-layer technology for underwater communication; however, video transmissions via acoustic waves are hard to accomplish as the acoustic waves suffer from attenuation, limited bandwidth, Doppler spreading, high propagation delay, high bit error rate, and time-varying channel. For these reasons, state-of-the-art acoustic communication solutions are still mostly focusing on enabling delay-tolerant, low-bandwidth/low-data-rate scalar data transmission or at best low-quality/low-resolution multimedia streaming in the order of few tens of Kbps. Hence, the objectives of this research program are: (1) To design novel communication solutions for robust, reliable, and high-data rate underwater multimedia streaming on the order of hundreds of Kilobits per second (Kbps); (2) To investigate the problem of integrating communication methods available in multiple environments on an innovative software-defined testbed architecture integrating Microelectromechanical (MEMS)-based Acoustic Vector Sensors (AVSs) that will enable processing-intensive physical-layer functionalities as software-defined, but executed in hardware that can be reconfigured in real time by the user based on the Quality of Experience (QoE).

By exploiting multiple-antenna arrays and AVSs, in Task 1 a novel physical-layer solution will be proposed to boost the data rate for underwater acoustic transmission so as to transfer high-resolution video underwater. By following a novel probabilistic approach, an efficient Medium Access Control (MAC) layer solution will be designed to share reliably the space among the steered vehicles by using AVSs so as to reduce the acoustic interference. The quality of multimedia delivery will be improved by applying a robust closed-loop hybrid Automatic Repeat Request (ARQ) coding technique based on the estimated angles of arrivals using AVSs. In Task 2, the SEANet G2 acoustic networking platform will be modified to investigate the design and fabrication of a new class of miniaturized and integrated AVS arrays based on the Aluminum Nitride (AlN) piezoelectric MEMS technology. Finally, in Task 3, scenarios will be defined to validate the ideas proposed in Task 1 using the Naviator, AVSs, and SEANet testbed; Task 2 will be evaluated by integrating SEANet to a buoy and the Naviator along with AVSs to build a testbed for conducting video transmission experiments. Tasks 1 and 2 will be also integrated by comparing the pros and cons of MEMs AVSs with Commercial Off-The-Shelf (COTS) AVSs and by evaluating the semi-autonomous human-in-the-loop features to enhance user QoE.